Physics and Mathematics at the Timbuktu Academy

Interdisciplinary - 99

This project is providing scholarship and support to students pursuing math, math education, physics and physics education undergraduate degrees. The students are participating in three unique programs thereby expanding their learning community and providing a unique way to enhance their academic, professional and personal success. The Timbuktu Academy is a nationally recognized systemic mentoring program; the LIGO Educational Outreach Partnership and Project MISE which both address inquiry based teaching and learning for pre-service teachers.

This project is enhancing the instructional and research infrastructure so as to maintain best practices in recruitment of math and physics students. The systemic mentoring of students, the strengthening of the quality of education, intra-institutional and other collaborations are primary factors in this effort. Evaluation is focused on student academic performance, retention, graduation rates and post graduation activities.